Energy Surfaces of Thermal Reactions

9319274 Gajewski Thermally induced reactions involving 1, 1-, 1, 3-, and 3, 3-sigmatropic shifts, polar solvent effects, and additions to aldehydes will be studied. Stereochemistry, deuterium kinetic isotope effects, and temperature dependence will be used to probe the course of these reactions. The 1, 3-shift study will focus on the vinylcyclopropane rearrangement, isomerizations of alpha-pinene, alkoxy-substituted vinycyclopropane and vinylcyclobutanes, and the methylenecyclopropane degenerate rearrangement. The 3, 3- shift studies will focus on heteroatom substituted 1,5- dienes and the 1, 1-shift studies will pursue the extent of double bond rotation in the geometric isomerization of trans-1,2-dideuteriospiropentane. Further development of a multi-parameter equation to correlate solvolysis rates, Claisen rearrangements, and Diels-Alder reactions will be pursued. Nucleophilic additions to aldehydes will be studied by means of deuterium isotope effects in order to determine the amount of bond formation in the transition state. %%% This grant from the Organic Dynamics Program supports the continuing work of Professor Joseph J. Gajewski at Indiana University. The results of this research will provide fundamental understanding about the reaction paths that are selected in the thermal rearrangement of organic molecules. This is an important topic, since such thermal rearrangements find applications in various areas from processing of petroleum to synthesis of organic molecules. The intricacies of these reactions will be probed by using deuterium labeled compounds and the unique three-dimensional structure of selected molecules. The effect of solvent on rates of reactions and additions to carbon-oxygen double bonds will be explored as well. ***